Conversion of Paper Mill Sludge into Pulp Substitute and Papermaking Clay

This is an award to support a Phase II, Small Business Innovation Research (SBIR) project, the objective of which is to determine the technical and economic feasibility of a process to convert the clay fraction of paper-making waste sludges into a product that is of sufficiently good quality to be reused in the paper-making process. Phase I research, conducted under NSF Grant No. 88-60246, was successful in separating paper mill sludges into long fiber, short fiber, clay and debris fractions. The long fiber fraction was determined to be of comparable quality to that used in paper making and the recovered clay was determined to be susceptible to improvement of brightness which would make it more acceptable for reuse. In Phase II, the investigators plan to examine the process developed in Phase I at a sufficiently large scale to provide the basis for its engineering design and installation in a full-scale paper making plant. Work will include improving the brightness of the clay fraction by bleaching and other chemical processes and determination of the physical properties of the clay fraction. Results of this research project are expected to be utilized in engineering design of processes and systems for recovery of a large fraction of the wood fibers and clays now used in making paper that are discarded and placed in landfills. In addition to the economic benefits of reusing presently discarded waste materials, recovery of the resource values from paper-making sludges will reduce the volume that must now be provided for their storage.